Electric Transmission Line Insulator Flashover Predictor System

9523267 Karady Insulator contamination cases frequent flashovers near coastal and industrial areas. This problem occurs in transmission lines as well as in substations. Currently, there are no reliable methods available for monitoring pollution build-up and predicting imminent flashover. The aim of this project is to develop a sensor system that monitors pollution build-up and that would alert operators when there is danger of flashover. Preliminary laboratory studies were performed at ASU and discharge current signatures were analyzed using the Fast Fourier Transform (FFT). Visual manifestations were recorded simultaneously with the current signature. It was found that surface discharges have distinct stages of development. Although the amplitude of current changes continuously, the harmonic content (signature) consistently indicated the status of discharge. It was observed that approaching flashover modifies the harmonic content. These findings suggest that flashover can be predicted by signature analysis of the leakage current. The concept is to select an exposed insulator in each area and monitor the leakage current through the insulator. The leakage current will be digitized and signature analysis will be performed. A change in signature indicates approaching flashover. First, different signature analysis methods will be tested in a laboratory to determine which one produces reliable flashover indication. After the method is identified and tested, a sensor system will be built to perform this signature analysis continuously. It is foreseen that the system will include a broad-band (20Hz-100kHz) currently sensor, a microprocessor and a transmitter. Leakage current will be continuously digitized and 50-100 cycles will be put in temporary storage. The stored data will be analyzed and if no signature change occurs, the data will be discarded. A signature change will trigger a transmitter that will alert an operator. Different levels of ala rm will be used. ***